POWRE: Exploring the Potential of Non-natural, Sequence-Specific Polymers to Adopt Biomimetic Folded Structures

9870386 Barron This POWRE proposal is from a very new educator and one who could profit substantially from an award. the research involves the synthesis and evaluation of a novel class of peptides where the normal alkyl chain attached to the alpha-carbon is instead attached to the amide nitrogen. The synthesis of these amino acids is easier than conventional amino acids, a broader range of these glycine derivitives is possible, and the resultant polymers are more resistant to enzymatic hydrolysis. The primary emphasis will be on developing folding rules for these natural protein mimics. The ease of synthesis will facilitate the study. The new class of polypeptoids has interesting potential applications as biomaterials. ***